An Ideas Lab to Foster Transformative Approaches to Teaching and Learning

This project provides the infrastructure, support and facilitation for the EHR Data-Intensive Research to Improve Teaching and Learning - An Ideas Lab to Foster Transformative Approaches to Teaching and Learning. The project secures a venue and coordinates the travel and accommodations for the participants. In addition, the project will help structure the work of the Ideas Lab mentors.